Static and Dynamic Pile Performance by Centrifuge Testing

The new geotechnical centrifuge at the University of Colorado- Boulder is the first large (400 g-tons) centrifuge in the U.S. and is one of the few of this size in the world. It is just now going through its acceptance tests and is expected to be on line soon. This proposal represents the first major effort to apply this new device to a major research problem. The problem of interest is the driveability and subsequent load- settlement behavior of pile foundations. This problem is a severe one in engineering practice. No fundamental analytical methods exist for the solution of these problems. Laboratory model tests performed at 1-g of acceleration have been shown not to describe field conditions with acceptable accuracy. Full scale field tests with fully instrumented piles have typically cost in excess of $100,000, with some costing more than $1 million, per pile test. Thus, field programs involving a series of tests are prohibitively expensive. In addition, field tests always suffer from the fact that actual sites involve non-uniform soils, and the act of taking soil samples changes the properties that are to be measured so the engineers are always uncertain about actual field conditions around any given pile. Laboratory model tests can be performed using soils of known physical properties but simulation of the proper stress state requires either field-scale laboratory testing or the use of a centrifuge to scale up gravitational accelerations, and thus scale down the physical size of the system. The proposed research involves two phases, viz., development of equipment for pile driving with the pile, hammer, and soil all "in flight", to simulate field conditions, and then a series of proof tests. Researchers will develop pile hammers that model full scale field hammers properly, and will drive piles with the centrifuge running. The piles and soil will both be instrumented to determine relevant conditions developing during the time that stress waves are passing through the system during driving. Efforts are planned to compare the results of these measurements with a very restricted number of measurements involving full- scale piles in the field. The intent of this research is to develop and proof-test the required equipment, and to perform the research necessary initial tests to show that the technique is a viable one for modelling actual field conditions. It is then expected that substantial additional support will come from industry and mission oriented government labs for support of research to develop better methods for pile support of such structures as off shore oil structures, and bridges.